Forward Spin Physics at STAR

This project involves measurements of collisions between polarized protons at the
Brookhaven Relativistic Heavy Ion Collider. The measurement of scattering cross sections, with the
dependence upon initial state spin orientation, yields insight into the spin configurations of the
quarks and gluons that make up the proton.
The immediate goal for this project will be measurement of the dependence of forward neutral pion
production on the transverse components of the initial state proton spins. Toward this goal,
calorimetry is to be installed in the very forward directions of the STAR detector. This set of
measurements is expected to produce the largest spin dependence in proton-proton collisions at
RHIC and is naturally our first objective as the new polarized facility comes on- line. Recent
theoretical progress has increased the importance of this kinematic region. Complete
measurements in STAR, with both longitudinally and transversely polarized proton beams and with
calorimetry and tracking covering a wide range of scattering angles, have the potential to
characterize the quark and gluon spin structure of the proton.